Some Problems in Topological Rigidity

DMS-9987185
F. Thomas Farrell

The goal of this project is to resolve some questions about
the structure of manifolds. Manifolds are geometric objects
which locally resemble the space of Euclidean geometry; but
could be quite different globally. For example the surface of
the earth, on a small scale, can be thought of as Euclid's plane.
But on a large scale, it is more useful to model it on the
sphere. One way to detect global differences is to travel
long distances, return and see if something has changed. For
example, if you walk around the surface of a Moebius band,
you'll return on the opposite side. The collection of all
travel routes (up to continuous deformation) forms an algebraic
object called the Poincare group of the manifold. A basic
conjecture formulated almost 50 years ago by A. Borel is
that the Poincare group of a closed aspherical manifold
determines this manifold up to a continuous bijective
correspondence. Closed means without boundary but finite in
extent. The Moebius band, for example, is not closed but
the sphere is. Aspherical means that any continuous image
of a sphere bounds the image of a ball. Spheres of
dimension bigger than two and correspondingly higher
dimensional balls must be allowed in this definition.
For example, the Borel conjecture is true for the surface
of a doughnut. However, the sphere itself is "clearly"
not aspherical.

Farrell in collaboration with L.E. Jones have verified
some important cases of Borel's conjecture and will continue
to work on it. One interesting question is whether there is
a "best of all possible" maps giving the continuous bijection.
It was once thought that the unique harmonic homotopy
equivalence does this in the case both manifolds are
negatively curved. Farrell, Jones, and P. Ontaneda have
recently shown that this is not so in general. (Farrell,
Ontaneda and M.S. Raghunathan extending this work have
just produced such examples even with pairs of diffeomorphic
manifolds: i.e. the harmonic map homotopic to the diffeomorphism
is not univalent.) But it is still open whether this harmonic
map is always cellular. Note if so this would contradict
the Poincare Conjecture. Another problem to be investigated
is whether any finite group of symmetries of the Poincare
group lifts to a group of symmetries of the closed aspherical
manifold provided the Poincare group has trivial center. The
thrust of this problem is to find interesting cases where
it is true. The case of surfaces is, for example, the
classical Nielsen problem solved by Kerkhoff. Farrell and
Jones have already obtained some other positive partial
results on this problem. In their work on these geometric
problems, Farrell and Jones have formulated conjectures
about the structure of the algebraic K and L theories of
an arbitrary group ring. They will continue their work on
verifying these conjectures. Again the thrust of this effort
is to give positive solutions for interesting groups